The Tobacco Ringspot Virus and its Associated Satellite in Plant Protoplasts Infected by Electroporation

Some RNA plant viruses become associated with RNAs termed "small satellite RNAs". The ca. 360 nucleotide residue satellite RNA of tobacco of tobacco ringspot virus (STobRV RNA) is not a messenger RNA, and it has no extensive nucleotide sequence homology with its supporting virus, tobacco ringspot virus (TobRV), as detected by hybridization analysis. Nevertheless, STobRV RNA replicates in TobRV infected plants where it reduces TobRV accumulation and symptom severity and becomes encapsidated in TobRV coat protein. Multimeric and circular forms of STobRV RNA found in infected tissues are likely replication intermediates. The goals of this study are to develop electroporation procedures to infect plant cell protoplasts with TobRV and STobRV and to study the mechanism of replication of the satellite RNA in protoplasts. These studies will allow elucidation of the interactions and relationships between the genomic and satellite RNAs in this system and will enable these relationships in protoplasts to be compared with those of intact plants.